Fungal Endophytes: Mediation of Plant-Herbivore, Plant- Plant and Plant-Seed Predator/Disperser Interactions

Faeth This project comprises a series of field and laboratory observations and experiments to examine the role of endophytic fungi in deterring herbivory on Arizona fescue and enhancing its competitive ability against other plant species. The investigators are also determining the costs to the plant (in terms of reproductive fitness) of the relationship with endophytic fungi under various environmental conditions. The investigators are also examining the effects of maternal (vertical) transmission of the endophytes on seed predation and seed dispersal by seed-harvesting ants. The results of this research have important implications for the role of microorganisms in dynamics of plant-animal interactions and the organization of plant communities. The results of this research have applications in conservation biology, rangeland management, and reclamation ecology. The re-establishment of native grasses in reclamation and range management efforts may be seriously affected by relationships with endophytes. These relationships may also affect native ungulates and introduced livestock.